Improved Teaching of Developmental Biology

Cells and Development, a new course, introduces students to a problem-solving approach while emphasizing molecular techniques for analysis of growth, differentiation, and morphogenesis. Student laboratories include DNA analysis, recombinant DNA techniques, protein analysis techniques, and cell and tissue culture methods; all topics related to lecture material. Many of the laboratory exercises challenge students with a problem and then require design of an experimental strategy to answer the questions developed. Equipment for this laboratory includes a spectrophotometer, shaking water bath, tabletop centrifuge, microcentrifuge, laminar flow hood, inverted microscope, tissue culture incubator, temperature cycler, and 10 electrophoresis systems (1 for each student pair). The unique features of this course are the extensive class discussions of experimental design and of student results.